The Tenth International Conference on the Electronic Properties of Two-Dimensional Systems (EP2DS-10), May 13, 1993 - June 4, 1993, Newport, Rhode Island

The Tenth International Conference on the Electronic Properties of Two-Dimensional Systems (EP2DS-10) will be held in Newport, Rhode Island from May 31-June 4, 1993. This conference is the tenth in a series and has the tradition of providing a forum for lively interaction and discussion with strong international participation. The emphasis of EP2Ds-10 will be on the fundamental physics of the electronic states and phenomena associated with reduced dimensionality (less than 3). The conference proceedings will be published in a special edition of Surface Science. The subject matter of the conference covers the following topical areas: *Nanostructures; quantum wires and dots; and mesoscopic effects *Many-body interactions, collective effects, and Coulomb blockade; optical spectroscopy of correlated states *Semiconductor heterostructures, quantum wells, and superlattices; III-V, IV, and II-VI materials *Integral and fractional Quantum Hall Effect and low dimensional electron solids *Electrical transport in strained-layer heterostructures *Novel fabrication techniques *Electrons on helium and cryogenic solid surfaces *Low dimensional organic polymers %%%